The Transition to a Quark-Gluon Description of the Nucleon

Three decades after the establishment of QCD as the theory of quarks and
gluons, understanding QCD works remains one of the great puzzles in
nuclear physics. A major challenge arises from the fact that the degrees
of freedom observed in Nature are bound objects composed of quarks (and
gluons): hadrons such as protons and neutrons. The remarkable and
unique feature of QCD at large distances --- quark confinement ---
prevents the individual quark and gluon constituents making up a
hadronic bound state to be removed from the system and examined in
isolation. As a corollary, quarks move with relativistic speeds inside
the hadrons and this motion makes up 99.9\% of the human mass.

At the other extreme, the property of QCD known as asymptotic freedom,
in which quarks interact weakly at (very) short distances, allows one to
easily describe certain properties of hadrons and atomic nuclei at
extremely high energies in terms of quarks and gluons.

Despite the apparent differences between the hadronic and quark-gluon
regimes, in Nature there exist instances where the behavior of
low-energy hadronic cross sections, averaged over appropriate energy
intervals, closely resembles that at asymptotically high energies,
calculated in terms of quark-gluon degrees of freedom. This phenomenon
is referred to as quark-hadron duality, and reflects the relationship
between confinement and asymptotic freedom in QCD. Surprisingly, this
phenomenon already takes place at rather low energies and averaged over
relatively small energy intervals (or a few hadronic states). This
proposal investigates electron scattering reactions off protons,
neutrons and nuclei in an effort to understand the origin of this
phenomenon.

The proposal encompasses several experiments scattering electrons off a
proton target to push and understand the limits where quark-hadron
duality arises. It also includes the development of a novel detector to
as closely as possible mimic an experiment scattering electrons off a
neutron target. According to many theories the different onset of
quark-hadron duality for protons and neutrons will point to the origin
of the duality phenomenon. Lastly, interesting questions also arise in
atomic nuclei: does a proton bound in a nucleus change structure due to
its underlying quark-gluon structure? Within QCD, there is no way to
derive anything like a nucleus in which the constituents (in normal
life, the protons and neutrons) do not change as the mean density
increases. Similarly, can one witness the underlying quark-gluon
structure of hadrons when they traverse a nucleus?

The proposing physicists have spearheaded the research thrust of
quark-hadron duality and more generally the transition between the
hadronic and quark-gluon descriptions of protons and nuclei. The
approved project will allow this research to come to fruition and will
simultaneously provide advanced, internationally-competitive, scientific
training for underrepresented minorities. Two of the proposers, and two
Ph.D. students, are female. In addition, one of the students is
Afro-american and two are African.